DLI-2 Shuhai Wenyuan Classical Digital Database and Interactive Internet Worktable

This project entitled "Shuhai Wenyuan Classical Digital Database and Interactive Internet Worktable" will create a digital corpus and internet-based resources to allow world wide use of seminal texts from China's classical period. The project will involve bringing together specialist in Classical Chinese language, thought, and culture, and information technologists to produce tools and access methods to materials that have thus far been limited to a select group of students and scholars. By doing so the project intends to open up new areas of study and research for learners of all ages.

The data content will be freely available via the web and offer Chinese texts, English examples, cultural and philosophical notes, grammar notes, and a search engine designed for a variety of tasks.